Substrate Specificity of V-Src and v-Tyrosine Kinases

This proposal focuses on the role of protein-protein interactions in the function of the v-Src and v-Abl tyrosine kinases. It has been suggested that the Src homology (SH) regions 2 and 3 of nonreceptor tyrosine kinases are important both in the regulation of kinase activity and in the recognition of cellular substrates. Regions of v-Src and v-Abl which are involved in intra-or-intermolecular recognition will be identified by peptide-based photoaffinity labelling experiments. Modified regions inside and outside the SH2 and SH3 domains will be studied further by site-directed, mutagenesis and the mutant enzymes will be tested by in vitro phosphorylation with tyrosine-containing synthetic peptides. These results will be correlated with a model of the three- dimensional structure of v-Src based on the recent crystal structure of the catalytic domain of the cAMP-dependent protein kinase. Finally, to identify determinants in protein substrates for v-Src which confer recognition by the enzyme, synthetic peptide "libraries" will be used to select those peptides which give maximal phosphorylation by v-Src. The goal of these studies is to describe at a molecular level the steps leading to the formation of the "signalling complexes" which play a central role in signal transduction and oncogenic transformation. %%% This research involves the role of certain regions of a protein in its ability to phosphorylate tyrosine residues of other proteins. These regions may be important for its biological activity. These regions will be identified by chemical labelling and genetic experiments. These results will be correlated with a model of the three-dimensional structure of protein based on the recent crystal structure of a similar enzyme. Lastly, special substrates for the enzyme will be prepared by random substitution of a variety of amino acids for the particular one found in a peptide which the protein phosphorylates. This will be used to describe structural features of substrates recognized by the modifying protein.